U.S.-U.K. Cooperative Research: Universality of Defects in Layered Materials

9904127
Winey

This three-year award supports US-UK collaborative research in materials science between Karen Winey at the University of Pennsylvania and Anthony J. Ryan of the University of Sheffield in the United Kingdom. The research explores the creation and relaxation of defects in a series of soft, layered materials. In particular, it addresses an apparent lack of universality, namely that block copolymers (layered materials having short relaxation times) form focal conic defects.

The US researcher brings to this collaboration expertise in imaging and defects using electron microscopy. This is complemented by the British researcher's expertise of in-situ characterization of materials using synchrotron sources. The collaboration provides access to unique model diblock copolymers developed by the British research group and access to world class synchrotron sources - the Daresbury facility in the United Kingdom and the European Synchrotron Research Facility in Grenoble, France.